Facies Architecture and Depositional Processes Resulting from Intra-Basinal Maar Volcanism, Hopi Buttes, NortheasternArizona

The primary goal of this research is to determine the effect of intrabasinal volcanism, specifically maar volcanism, upon lowland sedimentation. The investigation will be carried out in the Hopi Buttes volcanic field of northeastern Arizona, and will focus upon the depositional processes and resulting lithofacies architecture of the Mio-Pliocene Bidahochi Formation. This comprises fluvial and lake-bed deposits of interbedded, reworked tephra, un-reworked tephra representing the ejecta rims of maar volcanoes, and maar crater-filling sequences. A secondary objective is to compare the "wetness" of the surficial environment (standing lake, dry playa, ephemeral streams) inferred from the sedimentological study of the Bidahochi Formation with independent estimates of "wetness" derived from study of the depositional features and pyroclast morphology of the maar volcanoes' tephra rims. Maar fields are complex depositional environments. The maar volcanoes themselves are both sediment sources (erupted tephra) and sinks (the craters can capture through-flowing streams). The resulting facies architecture cannot be interpreted without understanding both the sedimentary and the volcanic processes operating within the depositional basin. The Hopi Buttes area is ideal for the study. Exposures are excellent and continuous in cliffs bordering the buttes, and erosion has exposed various levels of the system, from slightly above the paleo-surface of eruption to the bases of many crater deposits.